An Undergraduate Software Engineering Laboratory

Under this effort, the principal investigator will construct an undergraduate software engineering laboratory of six Sun 3/52 computer workstations. This laboratory will create an environment in which the students can be taught the software system's specification, design, implementation, and maintenance.